ITR: New directions in clustering and learning

New directions in clustering and learning

Faced with ever-larger amounts of data, researchers, government
institutions, corporations and even the general public seek tools that help them deal
with large bodies of information, identify patterns in it, learn what these
patterns mean, and act upon that information in a timely fashion.
Developing such tools involves a novel and interesting blend of algorithms,
statistics, AI, and machine learning. The project assembles a team of experts (four
from academia and two from industry) in these areas to attack an interesting
and meaningful subset of such problems which have the general flavor of
clustering or learning.

The defining philosophy of this proposal is that no clear boundary
Separates the twin notions of clustering and learning. Clustering is usually driven
by the end goal of learning, but can also be viewed as a learning task
in itself since it results in a more compact description of the data.
By the same token all learning involves clustering of some sort, and
in fact this viewpoint is implicit in recent papers in the learning
literature. The project takes an integrated view of the entire problem of learning
patterns in data, starting from streaming computations that might produce
representative sketches of the data as it streams by, to problems of
clustering data into meaninful patterns (with attendant problems of outlier removal,
multiobjective optimization etc.), to learning algorithms that fit
sophisticated models (SVMs, bayesian nets, gaussian mixtures etc.) for
inference and reasoning tasks.

The investigators believe that all these disparate algorithmic efforts have
unifying ideas. Furthermore, their synergistic approach throws up several
interesting ideas of its own that could lead to significant advances.
Examples: include using coding theoretic ideas in disparate applications such as
Multiclass learning (a broad class of learning problems including text and speech
categorization, part-of-speech tagging, gesture recognition etc.) and shape recognition
in vision; the use of clustering ideas to do dimension reduction (offering
an alternative to popular SVD based approaches), and using ideas from
approximation algorithms and clustering to do near-optimal model fitting
for models such as bayesian nets.

The project also includes a management and educational plan that involves
dissemination of the ideas of this research through development of new
courses and also pieces of learning software that will be placed in the public domain.
Algorithms developed in as part of this project will be tested on large
datasets, including those obtained from Google Inc. Some algorithmic ideas will
also be implemented in industry (including Google).